An Approach to the Non-interference Software Testing and Debugging

Progress in the development of software testing and debugging tools has lagged behind advances in other software technologies, yet program testing and debugging remain a bottleneck in the software production process, and they continue to dominate the software production calendar and ledger. This research is devoted to the study, design, and implementation of a new approach in software testing and debugging. The principal objective is to develop a "non-interference" software testing and debugging system to ensure minimum intervention with the execution of the target system, at the same time, providing the software practitioner with maximum control over program execution. The non- interference testing system addresses the critical problem of specific timing constraints in real-time systems which presents far more difficulties than software testing on conventional computer applications. Although the proposed system is oriented toward real-time system testing, it is potentially applicable to a wide range of applications, especially for on-site support testing of systems in operation mode. Justification and Recommendation This research could lead to an improved understanding of the software testing process. If successful it could be of real significance.